An Inquiry into Research Joint Ventures of the European Union

SRS 9616859 Vonortas This research project aims to develop a database on European research joint ventures (RJVs) and conduct empirical analysis on issues such as the incentives of firms to form RJVs, the impact of RJVs on the overall expenditures and profitability of member firms. RJVs are one of the arrangements whereby firms join forces to undertake research and development of common interest. These arrangements have become increasingly common and important for the competitive strategies of firms in high technology industries. This database will be complementary and comparable to a database currently in progress on U. S. firms and will enable analysis of possible differences between U. S-based research joint ventures and those that are European based. This database also will provide additional opportunity to empirically test theoretical economics and business literature on RJVs. ***